CAREER: Cross Layer Resource Allocation in Wireless Networks

Layering has long been a basic architectural principal in communication
networks. Recently, however, there has been much interest in exploring
various techniques that allow for a stronger coupling across traditional
layer boundaries, in particular between the physical layer and higher
network layers in wireless networks. At the physical layer, the fundamental
performance trade-offs as given by information theory are, in many cases,
well understood. When higher layer objectives, such as delay, enter the
picture, there is much less fundamental understanding.

This research is addressing several key problems in cross-layer resource
allocation in wireless networks. In these problems, physical layer "radio
resources" are dynamically allocated over time and between users in order
to satisfy both network layer and physical layer performance requirements.
Ideas from information theory and communication theory are used for
modeling the physical communication channels. Queueing theoretic models are
used for incorporating network-level quality of service issues. The
emphasis of this effort is to improve understanding of the basic
architectural trade-offs and fundamental performance limitations in these
settings.